Development of Ion Mobility Spectrometers for the Study of Ionic Reactions at Elevated Pressures

Analytical and Surface Chemistry Program funding is provided to this project to support the development of instrumental methods for high pressure studies of the dynamics of gas phase ion reactions. The kinetics and dynamics of reactions between ions and molecules at high pressures are important to a variety of processes occurring in the atmosphere, in combustion processes, and a range of analytical methodologies. The work of this research project will supply much needed information about the dynamics of ion reactions in the relatively unexplored high pressure regime. Both basic gas phase ion chemistry and analytical instrumentation development will be impacted by the work of this project. Ion-molecule reactions occurring at high pressures are the subject of this research project. There are very few methods available which can address questions of reactivity and kinetics in this pressure regime, and the work of this project will develop tools adequate to this task. The basic science understanding obtained from this work will strongly impact atmospheric and combustion chemistry processes.